RUI: Landmark-Based Mobile Robot Navigation Using Expected Shortest Paths

The topic of proposed work is development of robust algorithms for vision-based mobile robot navigation. A probabilistic framework is proposed for reliable navigation between landmarks in an unmodeled environment. In the considered strategy, the robot first explores its environment to learn the landmarks, and then uses the graph produced in the process for navigation.